Time Domain Study in Superconductivity (Materials Research)

Techniques for direct observations of non-equilibrium superconductivity phenomena are developed. A novel, non-equilibrium superheating effect is observed and characterized. The normal-to-superconducting relaxation in the sub-nanosecond regime is measured. Dispersive microstriplines are characterized and light interaction with Josephson junctions is studied. Planned research activities include the study of transient non-equilibrium effects in superconducting microstrips and tunnel junctions; the continuation of the development of the cryosampler, especially the adaptation of gallium-arsenide material for the sampler; the investigation of fluxon dynamics in Josephson transmission lines; and the study of the feasibility of a novel superconducting field effect transistor that uses the magneto-electric effect.